Workshop on the Assessment of Cyberinfrastructure Resources in EPSCoR Jurisdictions

Abstract
Proposal Number: EPS-1036917
Proposal Title: Workshop on the Assessment of Cyberinfrastructure Resources in EPSCoR Jurisdictions

This proposal requests funding to hold a workshop with the goals of understanding measurements for evaluating the quality and competitiveness of EPSCoR CI, comparing the quality of EPSCoR CI available to that available in 2007, and evaluating best practices for furthering CI development broadly construed. Before the workshop begins, a survey will be conducted to evaluate the current state of CI, broadly defined, across all 29 EPSCoR jurisdictions. The results of the survey will be discussed at the workshop as part of a 1½ day agenda consisting of overview presentations, panels, and breakout sessions with a focus on CI metrics, networking, HPC, CI software, workforce development, and meeting scientific challenges. This work has the potential to advance CI and support a broad set of science domains.

Intellectual Merit
Cyberinfrastructure is playing an increasingly important role in the conduct of science and engineering research and significantly changing science and engineering methods. This activity will enable the Foundation to gather accurate and comprehensive data regarding current bandwidth and CI capabilities of EPSCoR eligible jurisdictions, and to understand how this has changed over the past 3-4 years. This workshop will outline actions that can be taken to ensure that cyberinfrastructure for research purposes is broadly available, and will assist EPSCoR jurisdictions to address any road blocks that have come up as part of the growth in importance to CI at a national level. This project also has the potential to increase awareness of the interaction of CI and scientific research and education.

Broader Impacts
Many organizations have a stake or interest in cyberinfrastructure in support of research at US colleges and universities, especially since bandwidth and CI have been identified as two of the primary limiting factors affecting access to information and computing capacity at EPSCoR academic institutions. Any effort that can assist in supporting the deployment of CI and developing implementation plans to expand CI access has the potential to greatly improve the research and economic competitiveness of those jurisdictions.